K-6 Science and Mathematics Improvement in Missouri

Six higher education institutions in Missouri will cooperate, with the assistance of Missouri's Department of Education and Coordinating Board for Higher Education, in establishing statewide the successful and proven elementary teacher inservice services in science and mathematics developed in southeast Missouri by the National Science Foundation- supported KSAM Project (K-6 Science and Mathematics Improvement, Southeast Missouri). Concurrently, a model statewide network representing schools, colleges, educational agencies and professional organizations will be established which will (1) contribute to the success of the KSAM dissemination project, and (2) develop and implement statewide consensus on educational needs and programs relating to K-12 science and mathematics educational achievement in Missouri. Outcomes will be: (1) establishment of five ongoing, self-supporting centers for providing KSAM-type inservice in science and mathematics to local schools (Southeast Missouri State University is the sixth); (2) training of a statewide cadre of 320 largely school-based elementary science and mathematics inservice specialists; (3) participation of 4500 K-6 elementary teachers in KSAM-type inservice offerings; (4) establishing an ongoing model network of state educators and officials working cooperatively in improving science and mathematics education; and (5) development of specific recommendations for continuing improvement of science and mathematics education in Missouri. Southeast Missouri, State University will contribute in cost- sharing an amount equal to 18.9% of the NSF award.